Microwave Thermal Regeneration of Activated Carbon

Activated carbon adsorption is one of the best available techniques for removing organic compounds from air and water. Unfortunately, the costs associated with this process put it out of reach for many potential users. Thermal regeneration of the activated carbon is a major cost associated with its use. New innovative thermal regeneration techniques are needed to help control the cost of activated carbon adsorption and thereby foster more widespread use of this technique for recovering organic pollutants from air and water. This research seeks to demonstrate a new approach for thermally regenerating spent activated carbon. If successful, the result will be a regenerating process that is far more cost-effective than conventional regenerating techniques. This process could be operated at remote sites and field camps in the polar regions